U.S.-Germany Cooperative Research: Catalytic Partial Oxidation

0089758
Hohn
This award supports Keith Hohn and students from Kansas State University in a collaboration with Olaf Deutschmann of the Physics Department at the University of Heidelberg, Germany. The research funded by this award will involve detailed modeling of the partial oxidation of methane at millisecond contact times. Modeling of high flow-rate conditions will lead to better understanding of the complex interaction of gas and surface chemistries and of mass, heat, and momentum transport, and thereby to a better understanding of short contact-time reactors. The U.S. group will obtain experimental data suitable for modeling at high flow rates, while the German group will perform simulations with newly modified computer codes. The opportunity this joint, collaborative research effort presents junior researchers is substantial, and the work done on this proposal will help institutionalize the relationship between the German and U.S. research groups.